Regulation of Gene Expression at the Level of Transcriptional Elongation

A series of experiments are proposed to continue our investigation of the block to elongation of transcription of the human c-myce gene, which was observed originally by nuclear runoff transcription in the HL60 cell line. Preliminary results are presented indicating that the block to elongation as assayed by runoff transcription is also observed when the human c-myce gene is transcribed in the context o the xenopus oocyte. In addition, prematurely terminated and sÕcble RNA's with 3' terminal mapping near the end of exon 1 are initiated from tie two major human c-myc promoters after injection of human gene into the oocyte. Deletion analyses reveal that sequences sufficient to control the observed premature termination are located within a 95 base pair region upstream of a Pvu II site 40 bases 5' of the saxon 1/intron 1 boundary. Termination activity in these sequences is orientation dependent and functions downstream of the HSV-Tk, but not the adenovirus 2 major late promoter. Interestingly, these sequences are either eliminated or mutated in Burkitt lymphoma, and the block to elongation is alleviated in these cells. A series of experiments are proposed that will: 1.) provide independent verification of the in vivo distribution of RNA polymerase II in the c-myc gene in human cells; 2.) define sequences in cis necessary and sufficient for premature termination of thm human c-myc gene injected into xmoopus oocytes and the block to elongation of transcription in the luman c-myc gene in mammalian cells; 3.) determine the basis of read through transcription of c-myc in Burkitt lymphoma cells; and 4.) identify factors which interact with the sequences necessary for the block to elongation and, through in vitro transcription assays, determine their contribution to elongation. The regulation of transcription of eukaryotic genes is a central control mechanism in differential gene expression. While many investigators are studying the mechanisms involved with the initiation of transcription, few are focusing on the equally important levels of transcript elongation and terminetion. The results of this investigation should provide information leading to$a better understanding of this proess in eukaryotic cells.